Acquisition of a Cryogenic Elementary-Particle Detector Facility for Dark Matter Searches and Neutrino Physics

A Cryogenic Elementary-Particle Detector will be acquired by a consortium of institutions including Stanford University (principal institution), UC Berkeley and UC Santa Barbara. The instrumentation will be used primarily in the Stanford Underground Facility (SUF). The three Principal Investigators are Blas Cabrera, Professor of Physics at Stanford and Director of SUF; Bernard Sadoulet, Professor of Physics at UC Berkeley and Director of the NSF-funded Center for Particle Astrophysics (CfPA); and David Caldwell, Emeritus Professor at UC Santa Barbara. The Cabreras and Caldwell groups are supported by the DOE High Energy Physics program. This unique low temperature facility will be built to operate large-mass cryogenic particle detectors for research on dark matter and neutrino physics experiments, and for investigating industrial applications. Under the coordination of CfPA, the groups from these three institutions, along with research personnel from Lawrence Berkeley Laboratory (LBL), Santa Clara University and the Institute for Nuclear Research (INR) in Baksan, Russia are performing a search for the dark matter that makes up at least 90% of the mass of the universe. This problem is one of the most important in cosmology and science today and is the central theme of the CfPA. Our team is looking for weakly interacting massive particles (WIMPs) such as supersymmetric particles, which may constitute this dark matter. We are expecting to improve the sensitivity of the previous searches by more than a hundred times within a few years using novel detectors which operate at very low temperature. By simultaneously measuring the ionization and lattice vibrations created by particle interactions within crystals, we obtain an unparalleled rejection tool against ubiquitous radioactive backgrounds which have limited previous experiments. The proposed instrument will be operated in the Stanford Underground Facility (SUF). It offers about one cubic foot of space at a temperature of 10mK and an ultra-low radioactive background environment.